International Scholars Grant Program--Fourth World Conference on Engineering - Attendance Support

The Fourth World Conference on Engineering Education, to be held in Minneapolis, MN in October 1995, will bring together scholars from all parts of the world to discuss current international issues in engineering education. This grant will provide a third of the funds to be used to bring up to 50 international scholars to this meeting. Presentations and discussions at the meeting will focus on the increasing need to develop greater understanding of engineering education in other countries and to seek collaborators for educational initiatives that will enhance their institution's program offerings.